Communities of Scholarship

The project provides 50 scholarships to students who demonstrate academic talent and unmet financial need. The project is in direct response to industry needs for highly skilled workers and supports students majoring in Computer Engineering Technology, Computer Science, Electronics Engineering Technology, Telecommunications Technology, and Mathematics. It provides students with academically rigorous curricula, financial assistance, interdisciplinary, cohort-based learning communities, and a continuum of support services. All students participate in strong partnerships with high technology industries and receive career counseling, job seeking and placement, and transfer services. Through its management team, advisory committee, and mentors, the project engages students in research-based, responsive methods to attain their objectives. The recruitment efforts include videoconferencing of the Scholars Conferences to high schools and industry, use of bilingual personnel and print materials, information sessions, and partnerships with area high schools.